Algebraic and Combinatorial Aspects of Generalized Hypergeometric Functions

This project is centered around the study of A-hypergeometric
functions. These have been introduced in the 80's by Gel'fand
and his coworkers as solutions of a system of partial
differential equations encoding combinatorial data of polytopes.
Specific problems to be addressed in this project include: the
classification of rational hypergeometric functions and their
relationship with toric residues; bounds for the holonomic rank
and rational rank; hypergeometric functions arising as periods of
Calabi-Yau manifolds. Potential applications of this work
include a deeper understanding of the properties of the
A-discriminant and new algorithms for the computation of total
residues -a rational expression on the coefficients of a system
of polynomial equations which is of considerable interest in
computational algebraic geometry- and, ultimately, the
development of algorithms for solving polynomial equations.

The study of polynomial equations is of fundamental importance on
almost all branches of science and technology. In the last few
years it has become clear that the best approaches to their
solution are those that combine numerical and symbolic methods.
The work on this project attempts to answer some basic questions
on the symbolic study of a class of partial differential
equations closely related to systems of polynomial equations with
the goal of developing new algorithms. This same system of
differential equations arise also in Mirror Symmetry, a
fundamental theory in high-energy physics, with remarkable
consequences in pure mathematics. The investigator hopes to be
able to relate the symbolic approach to the classical algebraic
geometric (Hodge Theory) approach.